Searching Behavior and its Organization

How an ant colony responds to conflict with another one, or how much effort ants put into some task, often depends on the number of ants present. But no individual ant is capable of counting. Individuals must use some simple cue to assess nestmate density. Dr. Gordon will investigate one way that individuals could perceive changes in numbers of nestmates: Ants may respond to the interval between encounters with nestmates. When the number of nestmates is altered, the rate of encountering nestmates will change. Patrolling ants search for new food sources and respond to disturbances. The research will involve computer analysis of video films of ants patrolling new areas. Path shape and encounter rates will be examined when numbers of nestmates change, and when non-nestmates are introduced. Patrolling tactics of a variety of ant species will be compared. In many social organizations, encounter patterns may be a crucial link between individual decisions and group behavior. Social insects present an intriguing opportunity to study a system that has many features in common with other biological systems, from brains to embryos. Simple units (cells, neurons, individual ants) follow local rules but generate amazing global complexity. Just as no cell directs differentiation in the embryo, and no neuron directs thinking in the brain, no insect directs the behavior of the rest in a social insect colony. In the many fields of biology that study such systems, the same fundamental question must be resolved: How do local rules produce global behavior? Dr. Gordon's research is an investigation of how one type of rule, response to the rate of brief antennal contact, may operate in ant colonies. Understanding the details of colony organization in ant colonies may eventually help to elucidate some general principles about the behavior of any system in which interactions among simple units create global complexity. New computer software to be developed for analyzing the shape of paths on curved surfaces will be useful in many areas of study besides behavioral biology.